A Cross-site Analysis of the Data from Revised Historical Profiles of Industry/University Cooperative Research Centers

The evaluation component of the Industry/University Cooperative Research Center Program requires the evaluation to write a historical profile for each center each year. Because of the many different formats and structures used by the evaluators in writing the historical documents, a rigorous cross-site analysis of the historical profile protocol and structure was designed. This study addresses a cross-site analysis of the first wave of data collected from this revised historical profiles. The study will; 1) assess the ease of use, time requirements, comprehensiveness, local utility and other implementation issues of the revised historical profiles, 2) summarize the major themes and findings in each of the historical profiles sections to assess the ability to do cross-site analysis and 3) use the database to answer specific questions about Center operations and outcomes. The Principal Investigator and other researchers are recognized experts in evaluation theories and protocol. The Program Manger recommends that Dr. Craig Blakely be awarded $14,440 for one (1) year for this project.